ITR: An Optimizing Compiler for Languages with Programmable Memory Models

The memory model for a programming language specifies
the relationship between the order in which data accesses
appear in a program and the order seen during execution by
the different program components With the advent of parallel
programming environments like Posix threads, Java, and OpenMP, multi-
threaded explicitly parallel programs have become much more
frequent. This increases the need for memory models that
are easy to understand and efficient so that correct pro-
grams can be developed and still give good performance.
Unfortunately, the usability of memory models, their impact
on performance, and the compiler technology needed to per-
form optimizations of parallel programs are poorly under-
stood. The result is that current memory models tend to
favor performance over usability by restricting the programs
that can be written with them, or by being difficult to
understand. The objective of this project is to study com-
piler techniques to optimize explicitly parallel programs by
using optimizations and analysis algorithms structured to
handle a broad class of consistency models. The techniques
studied will be implemented in a compiler that will serve
as a testbed for prototyping and studying programming
language memory models and for studying the optimization
and analysis of explicitly parallel programs.